Probing Large-Scale Structure via Millimeter-Wavelength Measurements of the Sunyaev-Zel'dovich Effect in Clusters of Galaxies

The present day distribution of galaxies is inhomogeneous. The universe at the time of the cosmic microwave background (CNB) is isotropic and smooth. A critical problem in modern cosmology is the reconciliation of the two. The CMB provides an extremely uniform back light to the observable universe. When one views the CMB through a cluster of galaxies, the CMB spectrum is distorted because the CMB interacts with the hot, ionized plasma that is gravitationally bound in clusters of galaxies. This effect is known as the Sunyaev-Zel'dovitch effect.. The thermal and bulk velocities of the electrons in the hot plasma produce spectral distortions that can be only distinguished from one another by multi frequency observations at 100 to 300 GHz.

Dr. Church is continuing a program of research that uses the Sunyaev-Zel'dovitch Infrared Experiment (SuZIE). This is a bolometric array receiver that observes at 143, 217, 350 GHz. The instrument is designed to measure the thermal and kinematic components of the SZ effect with high precision. Dr. Church is extending the sample of SZ derived peculiar velocities at z greater than or equal to 0.1 to a sample of 60, with an expected precision of 250-700 km/s per cluster; and also measuring the arcminute scale anisotropy of the CMB with a precision of 10 mK per 1.5' pixel over 0.5 sq degree, thus mapping out the CMB power spectrum from l = 1000 to 3500.
***